Dissertation Research: Systematic and Morphometric Studies of Holodiscus

Under the supervision of faculty adviser Dr. Thomas Duncan, student Richard Lis will conduct field work in Mexico and Central America to acquire samples of the 15-20 species of the rosaceous genus Holodiscus. Leaves of these plants will supply a majority of characters for a taxonomic analysis of relationships among these species. The data will be accumulated using image analysis, a new computer method of data acquisition. Leaf characters will be supplemented with additional characters from flowers and fruits, which have not been thoroughly surveyed previously. Flower buds and shoot apices will be preserved for chromosome analyses. This will be the first study of this montane genus to utilize a variety of lines of evidence to provide consistent circumscriptions of the taxa, to construct reliable identification keys to the species, and to map the geographic distributions of the plants.